Fundamental Study of the Closure Property of Joints in Rock

By using new techniques to measure the relationship between joint permeability and joint closure over a wide range of pore and confining pressures, the investigator will study the effective pressure laws for both closure and permeability as well as combine constitutive laws which relate the aperture geometry to both transport and mechanical properties of joints.